Young Scholars Project -- Environmental and Earth Sciences

The Foundation for Glacier and Environmental Research will initiate an eight-week, residential, Young Scholars project with a Mathematics and Science Teaching Perspectives component in environmental and earth sciences for 15 students entering the 12th grade and 3 high school teachers. This summer program will emphasize field research in Alaska's Juneau Icefield. Students are in the field the entire period in a seven-day-a-week immersion in on-going and new research projects. They will be involved in discussions of career possibilities and the philosophy and ethics of environmental earth science. Involvement will continue throughout the academic year via preparation of research papers, presentations at homes schools, and through Newsletters and scheduled reunions with participants and staff.